Quantum Topology in Dimension Three

Abstract

Award: DMS-0508635
Principal Investigator: Charles D. Frohman

The principal investigator will extend and interpret quantum
invariants of three-manifolds utilizing the geometry of character
varieties. The ideas he is exploring will combine tools from
gauge theory, representation theory, homological algebra, and
three-manifold topology. This entails work on several
problems. With Kania-Bartoszynksa he will define a quantum
invariant of three-manifolds which will be a real analytic
function on the open interval (-1,1). The invariant will be
obtained by heat kernel regularization of the divergent formula
for the Turaev-Viro invariant. The power series expansion at 0,
will be in terms of weighted signed counts of surfaces carried by
a spine of the manifold. The normalized limit as you approach 1,
will yield the total Reidemeister torsion of the SU(2)-character
variety of the fundamental group of the manifold. Using ideas
from matrix models he will develop an analogous invariant based
on the SL(2,C)-character variety of the three-manifold. With his
students he will continue to study the connection between the
A-polynomial and quantum invariants, and explore the knot and
link homology theories of Khovanov and Khovanov-Rozansky. With
Oliver Dasbach and Marta Asaeda he is looking at homology
theories underlying the Alexander polynomial. Finally, given a
three-manifold and a Heegaard splitting there is an algebra which
is the Kauffman bracket skein module of the Heegaard surface and
a bimodule over that algebra built from the skein modules of the
two handle-bodies. With Mike McLendon, he will study whether this
homology is a three-manifold invariant, and if it is, what its
relation to Khovanov homology is.

The rational understanding of the path integrals of Richard
Feynman stand as one of the major unresolved problems of
mathematics. Using his integrals Feynman was able to make
computations in quantum electrodynamics that far exceeded
previous work. The tools he developed allowed the construction of
modern integrated circuits. The rules that physicists use for
computing path integrals have never been made completely
rigorous. The major thrust of Frohman's work in recent years has
been about these integrals in a simplified setting where things
can actually be computed. Specifically, the Yang-Mills measure in
the Kauffman bracket skein module assigns to a gauge field on the
space of flat connections on a surface a number. The formula for
the measure coincides with an asymptotic expansion that appears
throughout the physical literature. However, in this situation it
is actually a convergent series. Frohman is using this formula,
and the estimates he used to prove it converged, to pursue the
analytic study of three-manifold invariants that were before only
computable using algebraic and combinatorial methods. The goal of
the project is to reveal the geometric and toplogical nature of
quantum invariants of three-manifolds to the end of increasing
the understanding of three-manifolds, representation theory and
quantum gravity.